Community of Excellence in Mathematics and Science

The Community of Excellence in Mathematics and Science (CEMS) will build on the work of the Banneker Partnership (CPMSA). It will use innovative, best practice strategies to reform the educational patterns that limit student such and achievement in mathematics and science. The core approach for teaching, learning, staff development, and community involvement is the base for this reform.

Omaha's initiative is designed to complete the implementation of a standards-based curriculum and assessment model that will enhance the teaching and learning of mathematics and science. The K-12 core--curriculum will focus on student outcomes and be implemented by restructured graduate and undergraduate professional development in mathematics and science, and increase the effectiveness of partnerships among parents, community members and educators.

CEMS will greatly increase the number and diversity of students who succeed in science and mathematics and graduate prepared for advanced studies. It will substantially increase professional knowledge and skill of 2759 teachers and engage them in selecting and using teaching strategies that assure all students will increase achievement. It will use proven methods of engaging parents, businesses, and the general community for improving achievement and perseverance In mathematics, science and technology. 1t will Influence long term changes in the way teachers are prepared for urban education at the University of Nebraska Omaha. It will strengthen data-based decision making and problem solving skills in schools